Acquisition of an FDDI Backbone for Data--Intensive Social Science Computing

Winsborough With National Science Foundation support, the University of Wisconsin's Social Sciences Computing Co-operative will purchase a Fiber Distributed Data Interface backbone for its extensive computing network. This high-bandwidth backbone is necessary to the very data-intensive research done in the Co-op. work which uses a 50 gigabyte, on-line, data base of government and privately collected data files from the U.S. and around the world. The current network is an amalgam of older and more modern equipment using a 10 mb/s ethernet specification. Some of the older technology is slow and some is fragile and this seriously impedes research. The backbone is overloaded in the older part of its topology and peak daily loads are several times industry recommendations. It has become fragile and causes frequent interruptions for researchers along its path. The network to be constructed will have from 30 to 60 times the current bandwidth. It will both serve current users and add Department of Economics researchers to the system. The Social Sciences Computing Co-operative is composed of five research and teaching agencies in the University of Wisconsin and includes the Center for Demography and Ecology, the Department of Sociology, the Department of Rural Sociology, the Institute on Aging and Adult Life and the Institute for Research on Poverty. About 100 faculty and their teams of graduate assistants and professional researchers use the co-op facilities. The research conducted focuses on human resources, demography and the causes and consequences of global change, especially as it relates to the physical environment. The work contributes in a significant way to the increase in basic scientific knowledge much of it relevant to pressing national needs.